Computer-Controlled Instrumentation for the Improvement of Introductory Undergraduate Biology Laboratories.

Computer-based laboratory control centers (each including a Macintosh microcomputer, a high resolution pH meter, controlled-temperature water bath, programmable stirrer/hot plate, spectrophotometer, compound microscope, electronic balance, and centrifuge) are facilitating the development of computer, analytical, statistical, and observational skills for students enrolled in the introductory Principles of Biology course. Competencies are being developed through a series of Biology projects requiring skill in monitoring, data collection, statistical analysis, modeling, and report generation. With this new academic thrust, even lower division students are becoming better prepared to undertake undergraduate laboratory research, to complete major field projects, and eventually to participate successfully in graduate, medical, dental, and other professional programs.